Visualization and Software Architectures for Volumetric Displays

Computer display technology over the past twenty years has been dominated by two-dimensional display systems. Computer graphics techniques during this time have therefore concentrated on exploiting the potential of those displays. However, recent breakthroughs in volumetric (three-dimensional) display technologies promise to revolutionize computer display of information and user interaction. In particular, crossed-beam displays can now produce true three-dimensional "glass" images that can be simultaneously viewed from almost any direction. However, there are many challenges that must be addressed in order for these systems to reach their full potential. This project will develop flexible, extensible software architectures, data encoding methods, rendering and visualization techniques, and new human-computer interaction paradigms to fully exploit the capabilities of volumetric displays. These techniques will be tested on a 4-inch cubic volumetric display provided to NASA by 3D Technology Laboratories, Inc.